Electron/Positron-Proton Scattering with the ZEUS Experiment at HERA

This proposal requests support for an experimental research program to investigate the constituent structure of matter by colliding 27.5 GeV electrons and positrons with 920 GeV protons. The electrons and positrons are deflected in the interaction, called deep inelastic scattering, which yields a virtual photon which probes the structure of the proton.
The experiment is to be performed by the Penn. State University group and collaborators with the ZEUS detector at the HERA collider located at the DESY laboratory in Hamburg, Germany. The deep inelastic scattering experiment probes electron and quark substructure to distances of 10^(-16) cm., and continues the search for new families of excited leptons and quarks. In addition many tests of QCD physics may be performed, e.g., measurement of jet production in quasi-real photoproduction interactions are a sensitive probe of the photon structure. During the three-year period of this request, it is anticipated that the HERA accelerator will achieve the high luminosity collisions that will permit study of very high momentum transfer (Q^2) phenomena which could indicate physics beyond the Standard Model.